Analysis of Non-Linear Flows in Heterogeneous Porous Media and Applications

Ibragimov
DMS-0908177

Almost all off-the-shelf industrial simulators of the
process of filtration in porous media utilize the linear Darcy's
approximation of the momentum equation. On the other hand,
deviations from the assumed linear relationship between the
pressure gradient and fluid velocity occur even at low Reynolds
numbers, and in porous media containing fractures. Though these
deviations are commonly attributed to inertial forces, the actual
nature of this phenomenon is not adequately understood. The
objective of this project is to arrive at a model that transforms
current understanding and prediction of fluid flow in
heterogeneous porous media. Approaches and methodologies from
partial differential equations, computational fluid dynamics, and
differential geometry are deployed to attain this goal. The
models and methods involved include the following: a family of
generalized nonlinear flow models, which spans existing models
and forecasts new ones; a mathematical theory of the nonlinear
Darcy equation where the permeability tensor depends on the
gradient of pressure; a thorough study of the dynamics and
robustness of the equations; analysis of solutions to
Navier-Stokes-Forchheimer equations; applications of the methods
of differential geometry to nonlinear hydrodynamic flows; a
mathematical model for coupled flows in discontinuous fractured
media; computational methods to investigate the stability and
convergence of the multigrid algorithm for coupling nonlinear
multiphase flows in highly irregular porous media.

This project aims to better understand the complex phenomena
of fluid filtration observed in nature or arising in modern
technology and industry. The work provides a novel theoretical
and numerical framework to explore a wide class of nonlinear
flows in porous media. The methodology is based on modern
research in nonlinear partial differential equations, real
analysis and geometry, as well as new numerical methods in
computational fluid dynamics. The mathematical models and
methods are novel, and their applications are not limited to
nonlinear fluid filtration in porous media. The research is
integrated in educational programs spanning various special
topics. The results of this project are disseminated not only
through professional meetings and journal publications, but also
through a network of collaborations and partnerships with
industrial and reservoir engineering companies interested in
employing the tools developed in the course of the project. On a
larger scale, results of the project bear on the prediction and
evaluation of complex bio-hydrodynamic processes in the lumen and
arterial walls, transport of microorganisms in soil, new
techniques for image processing, and management of the nation's
groundwater and energy resources.